Expanding the Engineering Pipeline by Recruiting, Mentoring and Graduating Transfer Students

Engineering: Interdisciplinary (99)

This project is creating a cohort of engineering transfer students supported with annual, renewable scholarships for up to 4 years. These scholars are eligible for continued support until degree completion based on good academic progress. Students are being recruited from regional community colleges as well as 4 year institutions that do not offer engineering degree programs. They are pursuing degrees in chemical, civil, electrical, industrial, and mechanical engineering or computer systems. The overall objective of the project is aligned with existing college-wide goals which are supporting an existing, long standing recruitment program targeting transfer students. Additional initiatives available for these scholars include a summer research experience program, a residence hall floor specifically for transfer students in engineering, and a weekly seminar to aid in the transition process.

This project is producing well-prepared and diverse graduates to the national engineering workforce. It is also providing a rich opportunity to gain a deeper understanding of the underlying factors leading to the successful recruitment, enhanced retention and graduation of transfer students in technical disciplines.